Oceanographic Instrumentation

A request is made to fund additional and back-up instrumentation for the R/V Hugh M Sharp, a 146 foot Regional research vessel operated by the University of Delaware as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The request includes three items listed by priority:

1) Multibeam Upgrade
2) ADCP Replacement
3) Fiber Optic Instrument Frame

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.